Collaborative Development of Materials to Support the Use of a New Organism for Middle School Life Science

9353040 Matthews This project proposes to develop, introduce, evaluate and promote Fast Wasps as a versatile new living organism for life science instruction. The project intends to involve teachers in developing a minimum of ten (10) Fast Wasp laboratory investigations or activities and three (3) professionally produced video tapes that will supplement the instructional activities. The project intends to demonstrate how a research scientist can serve as a model for other research scientists in improving pre-college science education. This will be done by helping teachers develop meaningful laboratory activities that meets the needs of their classes. This is a cooperative project with seven (7) Georgia school districts who will test and evaluate the materials.